RUI: Investigation of the Kinetics and Mechanism for Covalent Binding of Proteins to Thin-Films

This RUI award to Professor Alice Deckert of Allegheny College entitled "Investigation of the Kinetics and Mechanism for Covalent Binding of Proteins to Thin Films" is supported by the Analytical and Surface Chemistry Program. The goal of the research is the comprehensive study of the kinetics and mechanism of protein binding to thin films. Surface plasmon resonance (SPR) and microgravimetric (Quartz Crystal Microbalance) analyses will be used to help understand these reactions. The research will focus on improving the development of biosensors. Both Langmuir-Blodgett protein thin films and self-assembled monolayers will be examined. The research is interdisciplinary and will impact the fields of surface analysis, analytical chemistry and biochemistry.

This research, to be performed by undergraduates, will be scientifically significant and educationally rich. The results will impact society in furthering the development of biosensor technology.